MRI: Acquisition of a High Performance Cluster for the University of Maine Scientific Grid Portal

Proposal #: CNS 07-23093
PI(s): Dickens, Phillip M.
Chawathe, Sudarshan S.; Fastook, James L.; Segee, Bruce E.; Zhu, Yifeng
Institution: University of Maine
Orono, ME 04469-5717
Title: MRI/Acq.: High Performance Cluster for University of Maine Scientific Grid Portal

Project Proposed:
This project, acquiring a cluster to establish a scientific grid portal in Maine, aims to enable projects requiring large datasets. The work makes available to the wider community results such as widely-used whole-ice sheet models, tools for climate change research, prototype versions of object-based caching system (bundled with MPI-IO implementation developed at Argonne National Lab), the data management system, real-time animations, videos, etc. Additionally, the portal provides the larger community the compute power, storage capacity, and rendering engine to execute very high-resolution models, and receive animations and other visualized information in real time.

Broader Impact: The infrastructure enhances understanding of global issues and contributes in the development of educational tools for K-12 students. The scientific grid portal contributes in the dissemination of important scientific discoveries. The portal also provides a show-case for research being performed in the state.